Polarimetric Infrared Circumstellar Imaging

AST-0123390
Kuhn, Jeffrey

This project is to design, fabricate, build, test and integrate an optical system to be placed on the US Air Force AEOS telescope system for the purpose of detecting and characterizing circumstellar matter in the infrared. The goal is to identify star systems most likely to have proto-planetary and planetary systems. The unique innovation in this proposal is the merging of coronagraphic and polarimetric techniques with the adaptive optics capabilities of a major telescope.
***